CSR--EHS--Environmentally Immersive Programming: A New Programming Paradigm for Deeply Embedded Systems

The main objective and intellectual merit of this project lies in developing
a new paradigm and run-time system for distributed computing in sensor networks,
called environmentally immersive programming. Environmentally immersive
programming is an object-based paradigm that allows integration of objects
that live in physical time and space as components in the computational
environment of an application. A new middleware, called EnviroSuite, is
built to demonstrate the first working environmentally immersive programming
system. Geared for environmental monitoring applications, this programming
system allows virtual objects to be dynamically instantiated and logically
attached to selected external entities or conditions in the physical environment
for monitoring purposes. Each such object encapsulates the monitored entity's
aggregate state, performs entity-specific computation, and serves as the
virtual communication port of the particular physical entity in the application
programmer's world. An important part of the proposed work is to address the
problem of unique representation of physical entities that are external to
the computing system, but whose presence is inferred via sensory input. The
complexity of this problem arises from the need to maintain consistency and
persistent state in the face of external object movement, message loss and
sensor false alarms. The utility of the middleware developed in this project
is demonstrated on realistic sensor network testbed using current sensor node
hardware.